Improved Model of Combined Cutting Mechanics, Heat Transfer and Wear of PDC Cutters in Cutting Rock

This project will study the effects of heat transfer and cutter temperature on the performance and life of drill bits which utilize synthetic diamond compact cutters. The end results of this work are expected to enable drilling for oil to be performed at greater depths than at present.